Evaluating and Enhancing the eXtreme Digital (XD) Cyberinfrastructure for Maximum Usability and Science Impact

0946505
Towns
This award is to provide the technology insertion service for the TergaGrid and follow on eXtremeDigital (XD) program. The purpose of the award is to;
(i) continually test the user environment and capabilities provided by XD to ensure delivery of the highest possible quality of service (QOS) and (ii)review and test advanced software tools for manipulating, processing and analyzing very large amounts of information, as these tools become available.
The Technology Insertion Service will have user-level access to all XD computational, storage and visualization services and will use these for testing advanced software tools and developing deployment strategies, in partnership with the relevant service providers.